CAREER: Physical Simulation For Assembling Robots and Robot Assembly

The need to design, assemble, and manipulate synthetic models of the physical world is common to many task domains in science, engineering, education, and medicine. In robotics, attention has focused recently on modular robots and modular robot tasks. A modular robot is one which is assembled from a predefined set of parts. Typically, the set of parts is a small set; however, the space of robots that can be built from the parts set is large. This research focuses on creating powerful interactive virtual environments that will enable users to modify, study, and experiment and interact with modular robots and modular robot tasks. This research explores the creation of a software environment in which one can take things apart and reassemble them (perhaps incorrectly!); design, build and experiment with simulated physical mechanisms and objects; and in general explore and manipulate the environment without being limited to some small set of anticipated actions. A fundamental requirement for such an environment is that it possess physical solidity -that is, objects in the environment must be treated as impenetrable objects. Modeling physical solidity in simulated environments is extremely difficult and as yet has only been dealt with on a special-case basis. The research work in this project centers on constructing and demonstrating virtual environments that model contact, collision and friction in a general manner. Topics of concern are fast compute-times, an extremely high level of reliability, and the ability to handle a diversity of models and environments.